An Undergraduate Systems Software Engineering Laboratory.

The project will establish a network of workstations to support instruction in system software, software engineering and operating systems courses. A feature of the laboratory will be the creation of animated simulations of computer operations such as the instruction cycle, interrupt processing, time sharing and message passing. The animated simulations will bring motion to the static, abstract drawings presently put on the blackboard and on transparencies. The simulations will allow student interactions. The students will be able to view the dynamics of computer operation at various levels, interrupt the process, or make changes in the external conditions and see the changes in computer operations.